1991 FASEB Conference: The Biology and Chemistry of Vision; July 21-26, 1991; Copper Mountain, Colorado

This conference on the Biology and Chemistry of Vision is one in a biennial series coordinated by FASEB to increase our understanding of visual processes. The theme is on molecular approaches to studies of visual transduction and retinal diseases, and the sessions will focus on visual pigments, the role of photo-stimulated enzymes, adaptation, invertebrate model systems, molecular genetics, retinal cell biology, hereditary retinal disease, and common motifs in transduction among other sensory systems. This conference will promote new ideas for future investigation, foster collaborations among interdisciplinary researchers, and provide young investigators an opportunity for enhancing their contacts and exposure in the field of vision research.